Representation Theory and Quantum Field Theory

9970499

The present proposal is focused on the study of sheaves of vertex algebras over smooth manifolds introduced in a recent work by Schechtman, Vaintrob and the author. The ultimate goal of such a study is the classification of the corresponding cohomology vertex algebras and their modules. This should find interesting applications in quantum cohomology and mirror symmetry.

The theory of vertex algebras is a mathematical tool intended for the explanation of conformal field theory. The above-mentioned sheaves of vertex algebras are supposed to explain some recent developments in topological field theory. This line of research has already produced certain results valuable for mathematics itself.